POSE: Phase I: Quantum Device Consortium for Superconducting Quantum Circuit Design

This Pathways to Enable Open-Source Ecosystems (POSE) project aims to improve how researchers design key hardware components used in quantum computers by strengthening shared design software tools. A promising quantum computing technology, superconducting devices, relies on accurate and precise design of the physical devices to achieve desired performance. Today, the design process depends on scattered open-source programs that are difficult to maintain and proprietary programs that are costly to access, slowing progress across the field. The project establishes the Quantum Device Consortium, a coordinating organization to support open tools for designing superconducting quantum devices. By establishing the structure for contribution to and maintenance of open-source design software, the Consortium ensure a sustainable open-source design ecosystem. Its efforts support the national interest by improving U.S. capability in quantum computing, a strategic technology area.

The team will develop governance and maintenance structures for open-source software used to design superconducting quantum devices. Efforts focus on two existing tools, SQuADDS, which focuses on the physical layout of device designs and simulations of their electromagnetic behavior, and scqubits, which focuses on circuit-level simulation and modeling of devices, as test cases for broad-use open design tools. The project establishes the Quantum Device Consortium to create processes that support quality, sustainability, and collaboration of these tools and others that will be incorporated in the future. The project defines pathways for contributors, improves tool compatibility, and creates a roadmap for long term community stewardship. These activities will guide future expansion to additional design and simulation tools, eventually expanding to cover the complete quantum device design workflow.